Acquisition of a MALDI/TOF Mass Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at Colorado School of Mines acquire a Matrix-Assisted Laser Desorption Ionization/Time of Flight (MALDI/TOF) Mass Spectrometer. This equipment will enhance research in a number of areas, including (a) coupling field-flow fractionation w/MALDI for analysis of bacteria & synthetic polymers; (b) fragmentation and ionization modes in the MALDI of bacterial proteins; (c) molecular weight and chemical species determination in unique polymer systems; and (d) characterization of microbial communities by MALDI of amplified & digested 16S rDNA.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules.